REU SITE: Undergraduate Physics Research

9424145 Bartlett The "Research Experiences for Undergraduates" Site at the Physics Department at the University of Colorado-Boulder will be continued. Students will be recruited mostly from the Rocky Mountain states but will be accepted nationally. The students will join the research projects of the Department and of the Joint Institute for Laboratory Astrophysics. ***